Structure and Dynamics of Metastable Materials

David Reichmann of Columbia University is supported by an award from the Theoretical and Computational Chemistry program to carry out research on the development of theoretical techniques for the study of supercooled liquids, glasses, and other soft materials. The PI and his group are studying the connection between structure and dynamics in supercooled liquids, developing theoretical approaches to calculate time correlation functions close to the glass transition, and undertaking the development of a precise exposition of the scaling properties of dynamical heterogeneity in supercooled liquids, and will study self-assembly in nanoparticle and colloidal systems. The work is having a broader impact on a number of different fields including materials science and biology.